RIA: Examination of a Neuronal Algorithm Using VLSI-Based Models

Wolpert The objective of this research is to recreate the function of a network of biological neurons using a VLSI-based neuronal analog, of neuromime. By reconstructing a well-documented network of biological neurons and comparing the signal patterns resident in the artificial network with those of the biological network, the hardware and sorfware of the network may be related to one another. This is being carried out in five iterations of modify, design, and test. In each iteration, a nominal neuromime is augmented with discrete components to match the characteristics of each of nine biological counterparts. These changes are then incorporated into the nominal chip, submitted for fabrication, and subsequently tested.